Environmental Data Acquisition and Communications Improvements at Sargent Center, New Hampshire

Abstract - NSF Proposal 0224822 (Phillips, Kunz, Rubendall, Woodcock)

A grant has been awarded to Boston University, under the direction of Dr. Phillips, Dr. Kunz, Mr. Rubendall, and Dr. Woodcock, to make physical improvements in environmental data acquisition and communications infrastructure at Sargent Center for Outdoor Education (SCOE), a field station of Boston University located in southern New Hampshire. SCOE is a unique environment for field studies, containing a wide range of terrestrial and aquatic habitats, but this field station is currently under-exploited for research and education. The goal of this project is to utilize data acquisition and communications improvements to enhance ecological research and education opportunities at SCOE. The scope of the project is broad both in terms of providing data coverage from four distinct terrestrial and aquatic habitats, and in terms of making these data available to a large and diverse range of students, educators, and researchers from the New England region and around the world. This project will greatly further the central goal of SCOE, to facilitate greater understanding and appreciation of the human relationship to the environment, and contribute to making a difference in the world's social and environmental future.

The exact work to be done is as follows. The principal investigators will direct the installation of a state of the art, spatially distributed system for automatically collecting and transmitting environmental data from a wide variety of habitats to a central base receiving station at SCOE. The base station will be linked to the Internet for remote data access and display for off-site education and research. The main elements of this system are: (1) environmental sensors and data loggers for data collection from four major habitats at SCOE (forest, meadow, aquatic, and small mammal habitats); (2) radio telemetry units to send data from all habitats to a central base station; and (3) a radio base station and a web-connected computer server to receive, manage and disseminate data both within a local area network and to the Internet. In addition, to provide physical access to the forest canopy in support of automated data acquisition, in situ research, and educational activities, NSF funds will support the construction of a secure walk-up canopy access tower. This canopy access tower will provide a unique facility at SCOE to study the spatial and functional complexity of forest ecosystems from a wide range of academic perspectives.

With funding for this proposal, scientists from Boston University and outside collaborators will be able to pursue ecological research and integrated ecological education at SCOE. These activities will include research training for graduate students, research experiences for undergraduate students, and educational outreach for school children from diverse backgrounds. At the graduate level, a recently developed, interdepartmental field course at SCOE, entitled "Measuring and Monitoring Biodiversity", will benefit greatly from the proposed improvements. At the undergraduate level, the requested equipment and infrastructure will directly benefit 16 courses within the Environmental Science major at Boston University. The proposed improvements will also be used to improve educational outreach to school children participating in five specific Environmental Studies courses currently offered at SCOE. In all of the above educational and research applications, the equipment requested will be used to investigate how critical environmental variables control a diversity of ecological processes, including small mammal function and reproduction in shelter habitat; environmental and biophysical variables important for land-atmosphere interactions in forest habitat, including light, temperature, humidity, and their gradients from canopy top to soil; forest structural variables that control forest carbon gain, including leaf area and phenology; soil science and biogeochemistry; and environmental variables critical to aquatic and amphibian species survival, reproduction, and conservation.